Targeted Infusion Project: Southern University – Computing and Data Education (SU-CoDE)

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Targeted Infusion Projects supports the development, implementation, and study of evidence-based innovative models and approaches for improving the preparation and success of HBCU undergraduate students so that they may pursue science, technology, engineering or mathematics (STEM) graduate programs and/or careers. The project at Southern University (SU) will enhance undergraduate STEM education by establishing the SU-Computing and Data Education (SU-CoDE) program to equip computer science, as well as other STEM majors, with computing and analytical skills across a range of contexts, disciplines, and problems. The project activities can serve as a model for other institutions that desire to strengthen undergraduate education in the area of computer and data science.

The objectives of SU-CoDE are to: enhance the role of the computing curriculum to have short- and long-term impacts on non-CS STEM programs; improve access to computational research experiences for undergraduate students to educate qualified STEM graduates for the workforce or graduate school; increase the interest, broaden participation, and thereby improve recruitment and retention of African American students in STEM fields; improve students’ transition from K-12 to undergraduate and undergraduate to graduate school; and enhance collaborations, partnerships, and professional developments to promote the research capacity of STEM faculty in computing and data science. A team of faculty from all STEM departments at the institution will be involved in this project. The project is guided by an external evaluation.